SHF: Design Methodologies for Energy-Based Models

Energy-based models (EBMs) offer a flexible way to represent uncertainty, which is a very important consideration in many downstream applications, e.g., medicine, law, and business. However, even though John Hopfield received a Nobel Prize in 2024 for his work on EBMs, scaling EBMs to high-dimensional data has been historically challenging. Recent breakthroughs open up new opportunities to make major research advances in this area. This project will develop computer-aided design methodologies and tools for EBMs. Such methodologies and tools will likely have a transformative impact on various fields, such as those mentioned above. These tools will be made publicly available so that other researchers and the industry can rapidly benefit from them. The methodologies will be incorporated into course modules so that both graduate and undergraduate students can dive deeper into this exciting area of research.

A successful conclusion of this project will open up applications of EBMs to downstream tasks like calibration for reliable classification (through uncertainty quantification of model predictions), continual learning, synthetic data generation, out-of-distribution detection, and semi-supervised learning. Outside the fields of computer vision and natural language processing, large datasets are often not available. However, if high-quality synthetic data could be generated from the same probability distribution as the real data, machine learning models could be trained to high levels of accuracy. Thus, the first effort will be directed at methodologies for synthetic data generation using EBMs. Synthetic data also play an important role in all three types of continual learning: domain-incremental, class-incremental, and task-incremental. The proposed multi-task continual learning framework will enable offline training of EBMs for highly memory- and energy-efficient edge inference. Semi-supervised learning addresses scenarios in which plentiful unlabeled data are available; however, labeled data are scarce. For example, in a disease detection application, a lot of physiological sensor data (e.g., from smartwatches) may be available from the general population, but not much data from those suffering from a particular disease. EBMs are very well-suited to semi-supervised learning as well. This requires new EBM design methodologies for this domain. Finally, at inference time, it is important to know when a data instance is out of distribution. In such cases, the model prediction will be uncertain. The project will develop design methodologies for well-calibrated EBMs to address this challenge.